Engineering Research Equipment Grant: Real-Time Sensory Integration for Robotics

This research involves integrating multiple robotic sensing devices to perform such tasks as object recognition, inspection, and grasping. The robotic sensing devices to be used are a high speed pipelined image processor and an intelligent gripper with tactile sensing capability. Methods for integrating touch and vision to perform these tasks in real time will be explored, as will algorithms for fast stereo matching and surface interpolation from sparse sensor data.